ITR: Hardware Acceleration of Database Operations

Hardware-based approaches to accelerate CPU intensive operations that
arise in the context of non-standard database applications are
proposed. Two hardware technologies, namely, off-the-shelf graphics
cards and content addressable memories (CAM) that are used in
contemporary Network Routers for very fast lookups are identified.
The graphics functionality designed primarily for display applications
can be exploited for polygon intersection in spatial databases and for
distance-based query processing. Content addressable memories (CAM)
can be gainfully deployed for accelerating join operations in
databases. In the context of new database applications, the join
constraint which is generally based on equality is being expanded to
encompass other conditions such as set-containment. The major goal of
this research is to develop a general framework for enabling
fine-grained hardware acceleration within a commercial DBM